CRI: IAD - Computing Infrastructure for Research-Based Learning (CIRBL)

0708573

CRI: IAD ? Computing Infrastructure for Research-Based Learning (CIRBL)

John Fernandez

Texas A&M University-Corpus Christi (TAMUCC), a Hispanic-Serving Institution (HIS) will build the Computing Infrastructure for Research-Based Learning (CIRBL). The CIRBL vision is to provide computing research opportunities for faculty and students and to enhance the computing education of students of the predominantly Hispanic population of the Coastal Bend region. In order to retain Hispanic students and increase their enrollment, it is imperative that Hispanic students experience a program that is founded on active faculty research and engaging research-based learning. CIRBL will enhance Hispanic education while supporting new and aggressive computing research. The critical objectives of CIRBL are to provide the infrastructure necessary to: a) increase and enhance computing research at TAMUCC, b) involve more graduate and undergraduate students in research, and c) enhance the recruitment and retention of computer science students, especially through research-based learning. In order to raise computing research to a new level, CIRBL includes infrastructure to support new research efforts within the department.